Research Experiences for Undergraduates in Chemistry at the University of Nebraska

Professor George D. Sturgeon and other members of the Chemistry Department at the University of Nebraska are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1991-93, eight undergraduate students will spend twelve weeks each summer actively engaged in a variety of research projects. Projects range from mass spectrometry and solid state NMR of zeolites to investigation of organic molecular recognition and immobilized enzymes. Students will participate in weekly seminars to discuss their results, visit local industries, and attend local cultural and sporting events as a group.